The Electronic Structure of Fluids

Professor Richard M. Stratt is supported by a grant from the Theoretical and Computational Chemistry Program and the Materials Theory Program to perform theoretical research in electronic structure of fluids. Stratt is developing new theoretical and computational techniques for studying the electronic structure of liquid state systems which undergo changes from insulators to semiconductors to metals as a function of density or composition. Specific examples which will be studied include expanded mercury and cesium and molten arsenic and silicon, which exhibit an unusual level of cooperativity between the fluid structure and the requirements imposed by electronic behavior. Specific problems to be dealt with involve the effects of electron interaction and directional binding. %%% Not only can one find liquids that are insulating, semiconducting, and metallic, one can even find liquids that can be made to transform continuously from one kind of behavior to another as a function of density. This kind of tunability is not commonly found in either small molecules or in bulk solids. A fundamental theoretical understanding of these detailed interactions at the atomic or molecular level could very likely lead to the development of new fluid materials with tunable electronic behavior.